Deep Water Formation off the Eastern Wilkes Land Coast of Antarctica

9317379 Foster This project is study of the deep and bottom water formation processes of the antarctic continental shelf off Wilkes Land between 145 deg E longitude and 160 deg E longitude. The project is to be carried out jointly with an Australian oceanographic project. Preliminary work in 1985 has shown that hydrographic sections in this area are quite similar to those of known deep water formation regions in the southern Weddell Sea. This project will include the year-long deployment of six current meter moorings, and tracer studies (oxygen, carbon dioxide, chlorofluorocarbons, stable isotopes, and nutrients) to test whether shelf waves and tides are the principal mechanism for mixing shelf water with the off-shore intermediate water. Two oceanographic cruises are planned for this work: a cruise of the RVIB Nathaniel B. Palmer in February 1995, and a cruise of the Australian ship R/V Aurora Australis in February 1996. ***